Summer Science Camps

The Marquette University Equal Opportunity Program (EOP), together with the College of Engineering, offers a 4-week Summer Science Camp Program that provides enrichment experiences in science, engineering and mathematics 59 48 middle school minority students, plus academic year activities at Marquette and in three area middle schools. Activities include: 1) exploration of "The Wonderful World of Robotics" through hands-on discovery and demonstration activities in civil, mechanical, electrical and computer engineering; and 2) construction of a LEGO/TC robot to accomplish a task of their choice. Academic year follow-up activities include: 1) Science Saturdays at the MU College of Engineering; 2) Science Clubs; 3) one-on-one assistance with students' science fair projects; and 4) participation in a mini science fair at MU. Both summer and academic year programming provide career exploration, college planning, and personal development components designed to inform and motivate middle school students about preparing for careers in science, engineering and mathematics.